CISE Educational Innovation Program: Research Integration and Dissemination for Undergraduate Computer Science Curriculum

9634333 Wulf, William Knight, John University of Virginia CISE Educational Innovation: Research Integration and Dissemination for Undergraduate Computer Science Curriculum. This CISE Educational Innovation award supports the integration of research into the undergraduate curriculum through the development of three new upper division courses along with establishment of a visiting faculty program and other working relationships with institutions to enhance dissemination of the results of the project. The new courses are in the areas of computer aided design, usability engineering, and translation systems. Dissemination will be accomplished through use of the World-Wide Web, through special relationships with a selected set of diverse schools, and a visiting faculty program in which individual faculty from other institutions will be in residence at the University of Virginia campus so as to become directly involved in the project and to then transport the material back to their home institutions. Development and dissemination of the new courses has the potential to impact curricula widely.